Conference: Student travel support for the GREPSEC VII Workshop 2025

This project will fund travel for around 35 students to attend the GREPSEC workshop, which will be co-located with the 34th USENIX Security Symposium. This will be the 7th edition of the GREPSEC workshop, which was created to promote increased engagement in security research from members of groups who are historically underrepresented in security research. The workshop accomplishes this goal through two main activities. The first is to deepen attendees' knowledge around emerging problems and solutions in the security field through a series of interactive presentations from mentors and breakout sessions. The second is to expand attendees' professional networks through connecting with both mentors and peers, providing additional resources for intellectual and career support around being security researchers. Together, these activities will strengthen the security community through expanding both the workforce available to the community and the breath of perspectives it can bring to bear on security and privacy issues.

To ensure a wide representation of institutions, topics, and students, the workshop organizers will widely advertise the availability of funds through security-related mailing lists, through collaborating with USENIX Security and other co-located conferences, and through institutions and organizations that have strong connections to underrepresented groups in computing.